Physics Alliances - A Program for School-College Collaboratives

One of the most valuable underutilized resources in strengthening school science programs is the pool of physics knowledge, laboratory equipment and technical expertise resident at neighboring colleges. This project aims to increase the numbers of students studying physics and the quality of the instruction they receive by increasing the physics knowledge and teaching resources shared between school and college instructors. This sharing will be supported by the formation of local alliances among secondary school physics/physical science teachers and college physics instructors. The American Physical Society will sponsor regional workshops for school and college instructors who wish to form such alliances. The project will then provide experienced advice and support to newly forming alliances, and will link collaboratives together through an alliance newsletter and other publications.